Global School House Phase One: Collaborative Uses of Internet Resources and Tools in the Classroom

9319950 Brett This project is the next 12 month phose of the Global Schoolhouse (GSH) project. Phase 0 culminated in the april 28, 1993 videoconference linking the four classrooms in California, Tennessee, Virginia and England. Phase I assists in integrating the GSH model into the K-12 classroom curriculum by demonstrating how the Internet and its tools can function as a classroom resource, supporting students and teachers in using the Internet in classroom activities, and encouraging business, school and community partnerships for ongoing collaboration. ***